NSF Young Investigator Award

The effects of disorder and electron-electron interactions on the transport properties of electrons sprayed onto solid hydrogen will be studied. A second area of study is the nature of 2D superfluidity on novel substrates such as H2 and C60 using an ultra-high Q torsional oscillator.